Research Experiences for Undergraduates: Experimental and Theoretical Investigation of Transient Forced Convection in Channels

In real-life operation of heat exchange devices, unsteady forced convection is as common as steady force convection. However, almost all experimental, results for forced convection heat transfer are for steady conditions. This investigation will provide experimental results for unsteady convection, which will be compared with theory. Supercomputer time will be provided.